Using Interactive Multimedia to Teach Japanese to Scientists and Engineers

This award will support development of an interactive multimedia program for the teaching of Japanese to English speaking scientists and engineers. The materials will be contextually grounded in situations and settings relevant to individuals going to Japan for the purpose of collaborative research. The learner will be exposed to interactions, characters, and scenarios in much the same way that she/he would experience these occurrences: randomly (as the video proceeds forward inviting the user to stop and select various options) or selectively (as action attracts interest). Interspersed with the "events" in a simulation will be a wide variety of linguistic exercises based on the core conversa- tions of the textbook, Japanese: The Spoken Language, by Jorden and Noda (Yale University Press). Users will be able to selectively access linguistic and cultural background information far more detailed than what is currently available in any textbook. There is a critical need for more effective communications between American and Japanese researchers. This project will help to address that need by integrating state-of-the art technology with sound principles of language pedagogy to produce a multimedia- based program of Japanese language instruction oriented to scientists and engineers.